The Nebraska Systemic Initiative

The Nebraska Statewide Systemic Initiative proposal aims to improve mathematics education in Nebraska's schools. Although the core of the proposal is at the precollege level, the project hopes to achieve higher University entrance requirements in mathematics and increases in the numbers of degrees awarded in mathematics (particularly to underrepresented populations). After solving the state's problems in mathematics, an initiative for science education is promised. The project's initial goals are: (1) implementation of the NCTM standards in elementary and secondary schools; (2) a revised elementary mathematics curriculum; (3) an increase in the mathematics requirements for elementary certification; (4) a distance learning project for rural schools; (5) greater integration of mathematics and science in secondary schools; (6) a public awareness campaign to generate support for mathematics education; and (7) a program to make mathematics education culturally relevant and learning-style specific. Cost Sharing: 85%.